Bilateral Exchange on Approaches To Robotics in the US & Japan

This project is to support a group of U.S. experts to participate in a bilateral exchange with the Japan Society for the Promotion of Science on approaches to robotics research and applications in the two countries. The purpose of this exchange is threefold: (1) To compare and contrast R&D on generic technologies that include robotics in hazardous environments and in service-related area; (2) To stimulate thinking about "strategic alliance" between the two countries; and (3) To provide an opportunity (by site visits to Japan) to observe recent applications of robotics, particularly in unstructured environments. Among the results of this exchange will be a report by the National Research Council and the U.S. Group on their recommendations of potential projects and ways of joint research that cannot be easily done by each country alone.